NSF Minority Postdoctoral Research Fellowship for FY 1996

This fellowship supports research and training in the area of developmental biology. Zebra fish will be used as a model system to study early development of the vertebrate heart. A mutant zebra fish which develops two hearts will be studied to determine how many genes are involved and if they regulate cell migration and/or adhesion. Using a variety of techniques of molecular biology, attempts will be made to identify the genes involved in heart organogenesis.